U.S.-Polish Cooperative Research on Activation of Small Molecules on Polyoxometalate Surfaces

9414097 Pope This U.S.-Polish Joint Cooperative Research on "Activation of Small Molecules on Polyoxometalate Surfaces" is between Dr. Michael T. Pope of Georgetown University and Dr. Krzysztof Filipek of the University of Silesia. The proposed collaboration is related to Dr. Pope's current NSF grant, CHE- 9215228, "Modulation of Surface Reactivity of Large Polyoxometalate Anions." Specifically, the principal investigators intend to explore and/or develop the activation of small molecules (e.g., NO, NO2, CO2, SO2, O2) by appropriately modified polyoxometalate anions in aqueous and non-aqueous solvents. The binding of NO, O2, SO2, and CO2 to polyoxometalates has already been demonstrated in earlier work from Georgetown and elsewhere. The focus of Dr. Filipek's recent research has been on the binding and multi-electron reduction of dinitrogen and nitrogen oxides with ruthenium-containing polyoxometalates. this ties in closely with the experience developed at Georgetown regarding the redox chemistry of polyoxometalates, and the characterization of tungstoruthenates. The ability of polyoxometalates reversibly to accept two, four, or more electrons suggests that pathways could exist for channelling reduction equivalents to the bound "substrates.: It is clear because of the strong overlap in interests, both research programs will benefit from the collaboration. This proposed research in polyoxometalate chemistry fulfills the program objectives of advancing science by enabling leading experts in the U.S. and Poland to combine complementary talents and pool research resources in areas of strong mutual interest and competence. ***